N20 and N0 Flux from Tropical Pastures and Forests, Atmospheric Inputs, Seasonality, and Controlling Mechanisms

Naturally emitted nitrogen oxides are of biogeochemical significance in terms of local nitrogen budgets and influences on atmospheric chemistry. Two of the most important nitrogen oxides in the context are nitrous oxide (N2O) and nitric oxide (NO). Present evidence suggests that tropical soils may be primary source of N2O on a global basis and that pastures converted from tropical forests may be especially active sources of N2O. Because neotropical forests are being converted to pastures on such a large scale, it is evident that the neotropical forest- to-pasture transition is the most important kind of ecosystem in which N2O flux measurements should be made. Much less is known about NO flux than about N2O, but available data suggest that NO may be more important as a naturally emitted nitrogen oxide from tropical soils than is N2O. Data strongly indicate that NO fluxes should be measured along with N2O fluxes if tropical soils are to be evaluated as an NOx source to the atmosphere. This research entails field measurements of N2O and NO flux from replicated plots representing primary forest, secondary forest, and pastures on relatively fertile alluvial soils and relatively infertile residual soils in the Caribbean Lowlands of Costa Rica. These measurements together with concurrent measurements of soil properties such as H2O content and NH4+ concentration will not only provide an estimate of annual fluxes from soils to the atmosphere, but will provide a statistical means to screen for potential causal relations. Such multivariate analyses will be related to field and laboratory experiments to define causal factors driving these fluxes. The overall importance of this research derives from two primary sources. First, the oxides of nitrogen under study are felt to the major components of the array of atmospheric "greenhouse" gases that contribute to global climate changes. As well, the study will yield important fundamental information regarding the system effects of land use changes in tropical environments. In this context it should produce significant results of wide utility.